SBIR Phase I: Plant Photomorphogenesis using Adaptive Multispectral LED Arrays in a Rotary Aeroponic Cultivation Chamber (RACC)

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to provide a sustainable method to grow healthy produce for individuals at a residential consumer level independent of location, climate, or season of the year. This project will develop new systems to grow produce in spaces with a small footprint, reducing food waste and consumption of potable water and energy. This can provide the capability to enhance cost-effective production in a small space with limited resources.

The intellectual merit of this SBIR Phase I project is a new plant cultivation technology, called rotary aeroponics. coupled with a tunable irradiance growth efficiency research light designed to examine how light wavelength and timing can impact plant photomorphogenesis. Rotary aeroponic cultivation is the method of growing plants on a rotating cylindrical tower that is affixed vertically within a controlled environmental chamber. The tower design provides a larger surface area for growing plants in comparison to traditional vertical farming methods, thereby increasing the number of plants grown in a smaller space with less power consumption. The goal of this project is to successfully grow a healthy polyculture assortment of leafy green vegetables in a food-safe environment. The multi-spectra light will be used to learn how to maximize plant yields, minimize food safety risks, and enhance the taste profiles of different plant types.